Passive Optical Sensing for Automatic Stationkeeping of ROVs

Last decade has seen an increasing demand for use of underwater robotic vehicles for various ocean applications, for example pipeline laying, inspection, repair, geological survey, etc. Reliability safety, flexibility, and economics are amongst some of the major factors that demand the development of intelligent Remotely Operated Vehicles (ROVs). This permits more efficient use of the vehicle, operator, and their support ships. The ultimate goal is the realization of systems with all the intelligence required to function autonomously in a variety of undersea tasks. One general capability essential to building some degree of autonomy into the ROV systems is accurate sensing of position and movements relative to a fix coordinate system or nearby objects. A particular application, as these vehicles become more widely used, is near-bottom stationkeeping; that is, maintaining a desired position to perform some task near ocean floors. With the current technology, near-bottom stationkeeping can be done via active sensing, using acoustic or optical beacons that need to be positioned accurately on the ocean floor, and recovered upon completion of the task. This is costly, tedious, and highly impractical in applications where active sensing is to be avoided. This three-year project involves the investigation of an alternative solution to the problem, passive optical sensing by exploiting the bottom natural features as beacons. The goal is to develop computer vision techniques for extracting information about position and motion of the vehicle by interpreting images of the undersea environment.